QnTM: Collaborative Research: Is Resilient Quantum Computing in Solid State Systems Possible?

This grant supports theoretical research on fundamental issues related
to the implementation of quantum computation in solid-state
devices. Since the discovery that certain tasks could be performed
with great efficiency by algorithms based on quantum mechanics, an
intense effort has been made to find suitable quantum
hardware. Although several proposed implementations, such as those
based on nuclear magnetic resonance and atomic trapping, have passed
the proof-of-principle, few-qubit phase, the path to achieving a
reliable multi-qubit quantum computer is still undefined.

In this proposal we investigate the physical limitations to resilient
computation with solid-state quantum bits (qubits), such as
semiconductor quantum dots and superconductor junctions. While
solid-state qubits seem easily scalable from the fabrication
viewpoint, they also present high decoherence rates as compared to
other implementations. One major concern is that such strong
decoherence may lead to errors occurring at a rate too large to
be controlled.

However, differently from other nuclear, atomic, and optical qubits,
the interaction of solid-state quantum devices with the environment
can introduce strong memory effects. As a result, temporal correlations
may appear during the operation of multi-qubit systems. Current quantum
error correction codes are not designed to cope with this situation,
which may then invalidate any error threshold estimate for solid-state
qubits based on the efficiency of those codes.

We will explore these issues in a comprehensive way. Starting from a
thorough study of the mechanisms of decoherence in single- and
double-qubit systems, we will study a model of multi-qubit systems in
the presence of correlated noise in a variety of realistic
conditions. Our results will help set up new strategies for the
operation of multi-qubit systems. They will also let us understand
what are the constraints that error correction codes will need to
satisfy in order to achieve fault-tolerant quantum computation in
large-scale solid state implementations. To achieve our goals, we have
put together a team of researchers with expertise in nanoscale physics
and computer science. The final outcome of our project will be a much
better understanding of how a real solid-state quantum computer would
behave.